Theoretic Studies in Geophysical Fluid Dynamics and Climate Dynamics

Wang
DMS-0908051

This award is funded under the American Recovery and
Reinvestment Act of 2009 (Public Law 111-5). The investigator
studies factors that are relevant to the low-frequency
variability of atmospheric and oceanic flows and that play a role
in climate changes. He focuses on three sources of atmospheric
and oceanic variability: the wind-driven ocean circulation, the
thermohaline circulation, and the El Nino Southern Oscillations
(ENSO). The study involves, on the one hand, applications of
existing mathematical theory to the understanding of the
underlying problems, and, on the other hand, the further
development of new mathematical theories -- dynamic transition
theory, geometric theory for incompressible flows, and attractor
bifurcation theory -- that are applied to the physical problems.
These new theories also have application to other problems in
nonlinear science and engineering. The main idea of dynamic
transition theory is to search for the full set of transition
states, giving a complete characterization of stability and
transition. The set of transition states -- physical "reality"
-- is represented by a local attractor. Following this line,
dynamic transition theory is developed to identify the transition
states and to classify them both dynamically and physically. The
project involves specific collaborations with atmosphere/ocean
scientists in different institutions and includes training of
graduate students.

The investigator studies some typical sources of climate
variability, which, independently and interactively, play a
significant role in climate changes. Wind-driven circulation
plays a role mostly in the oceans' subannual-to-interannual
variability, the El Nino Southern Oscillations are associated
with interannual variability, and the thermohaline circulation is
most important in decadal-to-millenial variability. The
investigator undertakes a careful fundamental-level examination
of these phenomena. Graduate students are involved in the
project. The studies could lead to improved predictions of and
new insights into weather, climate, and environmental phenomena
of central importance to our economy.